Some Nonlinear PDEs from Material Science, Biological Sciences, and Fluid Mechanics

Su
0708479

The purpose of the project is to study several types of
nonlinear partial differential equations that arise in material
science, solid mechanics, and cell biology. In particular, the
goals of project are to study the relation between a variety of
plate theories and three-dimensional elasticity theory by
deriving the asymptotic limit of three-dimensional nonlinear
elasticity, to justify the limit of a singularly perturbed
functional as an Aviles-Giga functional, to investigate the
evolution of interfaces in multi-phase polymer crystals growth by
addressing the stability of moving fronts, and to deepen
understanding of the homogenization limit of parabolic equations
and of systems of elliptic equations in cell biology and polymer
sciences.

The investigator studies nonlinear pertial differential
equations that describe important behaviors of systems in
polymers, materials, and cell biology. Clear understanding of
the stability of moving interfaces helps control the interface
between the melt and crystal to ensure high quality of polymer
production. Theoretical guided computation of the Young modulus
in polymer nanocomposites is important to measure the strength of
micro-packaging material for computer chips. Identifying the
corrected diffusion process for protein IP3 from cell membrane to
highly convoluted endoplastic reticulum can save huge amounts of
money and time in fundamental scientific research in cell
biology.